Travel Grants for Graduate DPF Students Attendance at APS Meeting; May 1-4, 2004; Denver, CO

The proposal is a request for support to help cover the costs of travel for graduate students in the Division of Particles and Fields (DPF) to attend the May 2004 General American Physical Society (APS) meeting. It will take place from May 1-4, 2004 in Denver, CO. The funds will be used to help support graduate students who are APS/DPF student members who otherwise could not afford to attend the meeting.